Increasing Undergraduate Engagement in Bioinformatics

This project aims to serve the national interest by building a regional network of faculty from smaller colleges and universities that offer entry-level bioinformatics and protein modeling experiences to their students. Historically, bioinformatics programs and experiences have been at large, research-intensive universities and inaccessible to students from smaller and less-resourced institutions. However, technological advances in molecular biology - including genomics, transcriptomics, and proteomics - have led to an explosion in publicly accessible biological databases containing oceans of information. With the emergence of user-friendly tools to organize and analyze this information, students from all types of post-secondary institutions can participate in authentic bioinformatics research. The Characterizing Our DNA Exceptions (CODE) program will incorporate skill development, active learning, and research-driven coursework, bringing students directly into the world of research. Students participating in CODE will use computational modeling and database analysis to explore the significance of DNA variants identified in clinical and agricultural studies. They will become producers of knowledge, gaining insight into the biological significance of these DNA variants. Along the way, they will gain confidence working with informatics tools, and an awareness of related career pathways - key components for increasing their scientific identity and persisting in a STEM major.

This proposal will build a regional network of 50-60 college faculty facilitators from up to 40 post-secondary institutions across the Southeastern US. The project's primary goal is to increase access to research-based learning experiences, particularly for students at small institutions with fewer undergraduate research opportunities. Working individually or in small collaborative teams, students will select from a list of clinical or agricultural DNA variants identified as part of a HudsonAlpha research project or from a publicly available genome database. They will use student friendly analysis software to analyze the sequence in the context of its location within the genome and compare it with similar segments from other organisms, followed by molecular modeling to study how the DNA variant may alter the protein structure. Student work will be documented in a written report, uploaded to an open-access repository library, and presented at an annual CODE symposium. Facilitators will be trained to mentor undergraduate students using this variant analysis and molecular modeling workflow, which can easily be integrated into existing and new courses. This approach will introduce a broad range of students to bioinformatics in a mentored project-based format to capture interest, build confidence, and encourage continued participation in science education and a STEM career path. Quantitative and qualitative evaluations will be conducted to determine whether participating in a CODE project increases awareness and interest in bioinformatics, science self-efficacy, scientific identity, and intention to enter or remain in a STEM major. Evaluation data will measure shifts in student awareness and interest in bioinformatics, self-efficacy, and scientific identity - all factors that positively impact STEM persistence. This project’s success will provide a sustainable model for low-cost, authentic undergraduate bioinformatics research projects for institutions of all sizes. The NSF IUSE: EHR Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.